Enhancing Scientific Data Literacy in Undergraduate Science and Technology Students

Computer Science (31)

The "Enhancing Scientific Data Literacy in Undergraduate Science and Technology Students" project is creating a course where students learn the fundamental concepts of managing and manipulating scientific data in their discipline.

Intellectual Merit: The project is developing an interdisciplinary course that is promoting collaboration between disciplines in scientific research. The course is fostering a culture of interdisciplinary research among students and scientists.

Broader Impact: The project is targeting underrepresented groups and encouraging these future scientists to collaborate by providing them with a shared experience. It is involving both students and faculty from a broad range of disciplines. The PIs are disseminating their results through presentations at both regional and national conferences.